WWW.Evolution

The National Center for Science Education proposes to develop a website on evolution and the nature of science for K-12 teachers. This project, "WWW.Evolution," aims to improve teacher understanding of the nature of science, the patterns and processes of evolution, and the history of evolutionary thought and to increase their ability to teach these subjects effectively. The Site will also provide teachers with classroom resources, including a selection of effective approaches and teaching strategies and a searchable database of curricula, teacher-tested activities, and lesson plans, which are consistent with those modeled in the National Science Education Standards. The evaluation of the project will include multiple aspects of the proposed website and its constituent elements, ranging from its appeal and utility to its ability to help users understand new concepts and acquire strategies for -- and confidence in -- teaching evolution.